Study of Stratospheric Aerosols and Their Heterogeneous Effects on Ozone

Fine particulate matter in the stratosphere impedes the passage of solar radiation to the earth's surface. The size, shape, and chemical composition of airborne particles determine the extent to which different wavelengths of light are attenuated by processes of absorption or scattering. Therefore, knowledge of the altitude profiles of these stratospheric aerosols, of their physical and chemical characteristics, and of their spatial and temporal changes, is required in any effort to predict their effects on the heat balance of the atmosphere, or on warming or cooling effects at the earth's surface. As a result of study on the Antarctic ozone hole, the role of particles on the chemistry of the stratosphere is also being more fully appreciated. Some baseline level of aerosol distribution characterizes the undisturbed stratosphere, but volcanic eruptions inject gases and ash particles at unpredictable times and places and in quite significant amounts. An assessment of either long- term or episodic effects of volcanoes or other natural influences requires the acquisition of a long time series of observation. Through the decade of the seventies and up to the present, the principal investigators of this grant have maintained a regular series of instrumented balloon flights to measure the size distributions and altitude profiles of stratospheric aerosols. This observational program has provided the only available set of data based on instrumental measurements made in the stratosphere. The instrumented balloon system already in place at Laramie, Wyoming, was able to characterize aerosols in the plume of El Chichon, a Mexican volcano that erupted in 1982. This project will continue this important record of stratospheric particulate with improvements in the size resolution of the particles. The stratospheric aerosol presently appears to be at background levels, but in the advent of a major volcanic eruption, the project will focus on identifying any depletion in ozone associated with heterogeneous reactions on the particles. Measurements at high latitude (Kiruna, Sweden), are aimed a determining the particle size distribution of polar stratospheric clouds which are thought to be instrumental in ozone depletion as observed in Antarctica.